3 Manifolds and Knot Theory

Knot theory and 3-manifolds have recently seen the fruition of several
long-standing programs. The aim of the conference is to give a forum for
the research community to assimilate recent advances and emerging techniques
in the field. The broad perspective of the conference is particularly
important for bringing young researchers to the forefront of the field;
consequently, special attention will be paid to the support of graduate
students and postdocs.

Knots and the three dimensional spaces in which they live have long
been important objects of study in mathematics. More recent times have shown
that the area is intimately related to
many other branches of mathematics as well as to physical
sciences like biology and cosmology. This has
provided renewed impetus for understanding these spaces. The
conference will bring together experts in various fields all of which have
connections to knot theory and 3-dimensional spaces, with the
intention of disseminating recent important results in the area, providing an
overview of the current state of research, as well as directions for future
exploration. These talks are aimed at both experts and novices in the area.